Infrared Studies of Molecular Ions in Labortory and Space Plasmas and In Cryogenic Solid

9321913 Oka This work continues the success efforts to observe and analyze their strong infrared emissions of H3+ in planetary ionospheres and possibly in supernova 1987A. The effort will be continued to find the H3+ spectrum in other astronomical objects, especially in molecular clouds. The experimental and theoretical studies will be attempted using hot laboratory plasmas and new near infrared lasers along with midinfrared laser sources. Two new discharge cells will be used to identify novel spectra of molecular ions. A determined effort will be made to identify spectra of protonated methane and oxygen using a hollow cathode discharge cell in a magnetic field. Furthermore, a new method of ion spectroscopy will be introduced using ionized cryogenic solids instead of hot plasmas. Gamma rays from 60Co will be used to ionize para-hydrogen crystals to form atoms and ion clusters. A Fourier transform spectrometer and possibly laser spectrometer will be used to observe their infrared spectra. If successful, the method will be extended to other cluster ions by introducing other molecules in crystals as impurities. ***